IRCEB: Ecological Forecasting and Risk Analysis of Nonindigenous Species

Intellectual merit. Numbers of nonindigenous species--species introduced from elsewhere - are
increasing rapidly worldwide. They are a major cause of biodiversity loss and environmental
change, and are estimated to cost the US $137 billion/yr. The 2001 National Invasive Species
Management Plan (www.invasivespecies.gov) highlighted the urgent need for more rigorous and
comprehensive risk analysis frameworks for nonindigenous species so that prevention and
control strategies can be targeted appropriately. The central public policy consideration is how
much of society's resources should be expended in response to nonindigenous species, and how,
for example, should it be allocated between prevention and control? These considerations,
though, include a nexus of interacting ecological and economic factors that require
interdisciplinary effort. Species invasions are caused by economic activities, and in turn affect
economic activities. This ecological and economic linkage and feedback means that the
assessment of risk interacts with the management of risk, which contradicts the common notion
that risk assessment and risk management are independent. Social welfare and risk assessment
are both determined jointly by ecological and economic processes.
In response to the need for interdisciplinary risk analysis, this project brings together
experts from invasion biology, mathematical modeling, and economics. The main goal is to
develop and apply a bio-economic modeling framework for nonindigenous species that
integrates risk assessment and risk management, includes uncertainty distributions, and
optimizes prevention and control strategies in a landscape context. The overall bio-economic
model uses Stochastic Dynamic Programming, which allows the investigators to incorporate
ecological-economic feedbacks in such a way to optimize combinations of prevention and
control strategies to maximize social welfare. This framework will be extended to the landscape
scale with Neural Network models.
The applications will focus on freshwater nonindigenous species in the Great Lakes
region. A preliminary application to zebra mussels suggested, for example, that society should
be spending about $240,000/yr to keep zebra mussels from invading each lake with a power
plant (to prevent fouling of pipes). This is in sharp contrast to the $825,000 that the Fish &
Wildlife Service spent in FY2001 for prevention and control efforts for all aquatic nuisance
species for all lakes. Our analyses will be directly relevant to policymakers and natural resource
managers.
Broader impacts. The investigators will partner with the Shedd Aquarium in Chicago to
educate schoolchildren and the public about the general problem of nonindigenous species, about
what individuals can do to reduce the problem, and about the role that science plays in public
policy decisions. By partnering with an educational software firm, they will convert research
models into user-friendly formats for use by schoolchildren, the public, policymakers, resource
managers, and stakeholders. In partnership with the Great Lakes Commission, research methods,
results, and user-friendly products will be disseminated in workshops to policymakers, managers,
and stakeholders. Finally, they will develop international collaborations and a reciprocal
exchange of information and techniques with top researchers in Australia, where NIS research is
advanced relative to North America.